Mono Ion Research III: Precision Mass Ratios and Differences (Physics)

Single ions contained in a small electromagnetic trap move in orbits at normal mode frequencies directly related to the charge-to-mass ratio. Trapping and loading techniques are being developed and refined to permit mass measurement (relative to an appropriate calibration ion) with a precision that is ultimately expected to exceed one part in 1010. Improved determinations will be made of: the proton-to-electron mass ratio, the proton's atomic mass, the atomic mass of 2H, and the 3H - 3He mass difference. These measurements may yield an independent determination of the fine structure constant, a measurement of the neutron mass, and may help establish the antineutrino rest mass.